Engineering an Innovative System for Utilizing Organic Waste Materials in the Production of Grass Sods

The objective of this project is to determine the feasibility of a novel system for producing grass sod using organic wastes as a substitute for topsoil. In this system, the grass seed is germinated in organic waste spread over polyethylene film. When ready for harvesting, the sod may be rolled like carpeting leaving the polyethylene sheet in place for the next crop. The proposal leading to this Phase I award was submitted in response to NSF Program Solicitation 87-8, Small Business Innovation Research. The concept was evaluated, if found to be technically feasible, would utilize the resource potential of otherwise wasted materials, conserve topsoil, water and fertilizer, and improve the efficiency with which sod is produced.